TO TRANSFER $61,300 TO U.S. OFFICE OF PERSONNEL MANAGEMENT TO ADMINISTER THE ORGANIZATIONAL ASSESSMENT SURVEY TO APPROXIMATELY 1,250 NSF EMPLOYEES.

To transfer $61,300 to the U.S. Office of Personnel Management (OPM) to administer the Organizational Assessment Survey to approximately 1,250 NSF employees.